3-D Imaging with Parallel Pixel Filtering Techniques

In recent years, confocal microscopy has been developed to meet the increasing demands of 3-D imaging. The deficiency of the technique is that the image data must be collected pixel by pixel through scanning, which makes the instrument slow, inefficient, complicated, and expensive. 3-D imaging will be realized through parallel pixel filtering techniques. A pixel filter array made of micro-optics can be constructed to perform spatial filtering for all image pixels simultaneously. Only the light from the focal depth region can pass through the pixel filter array and the light from out-of-focus regions is rejected. Sectioned images can be obtained without scanning. The technique is expected to have better depth discrimination capability than that of the confocal technique. Due to the elimination of image scanning, the technique will substantially increase the imaging speed, simplify the instrument design, and greatly reduce the costs. This program will lead to the development of a new 3-D imaging technique and may find wide applications not only to microscopic imaging but also to telescopic imaging.